Research Experiences for Undergraduates in Physics

The REU program at Michigan State University offers to undergraduate students the opportunity to do fore-front research in a field of physics-nuclear, condensed matter, high-energy, or astrophysics. Each student will work on a well-defined research project under the direction of a faculty mentor. A wide variety of projects is available, both experimental and theoretical. In nuclear physics, MSU is the site of the National Superconducting Cyclotron Laboratory. Condensed matter physics includes basic solid-state physics and properties of new materials. REU projects in high-energy physics are done at MSU, relating to experiments at Fermilab and CERN. For astrophysics, there is a 24" reflecting telescope at MSU, and data from other observatories. At the end of the program each student will write a research report and give an oral presentation. Seminars, field trips, social activities, and sports are planned.